Massively-parallel Electronic Structure Calculations for Energy Applications

It has been estimated that the entire world-wide demand for energy will double in the next
two decades, therefore it is critical to investigate revolutionary energy technologies
to meet this demand. A potential hydrogen economy is a key player in this market
space. However, hydrogen as a fuel requires efficient storage materials that retain and release
a great deal of hydrogen as desired. This proposal aims to use large scale and accurate quantum
mechanical calculations on an important class of porous hydrogen storage materials: metal-organic
frameworks (MOFs). The research team will study the properties of hydrogen inside of MOFs
and seek to understand their physical properties and how one can design improved MOFs that
should deliver improved storage of hydrogen per unit weight under reasonable and real-world
operating conditions.

To understand and improve MOFs for hydrogen storage applications, it is key to study the microscopic
physical properties of MOFs that govern hydrogen uptake, release, and diffusion
inside the MOFs. This requires simulation of hydrogen inside of MOFs at the atomistic scale.
The project propose to perform highly accurate quantum mechanical simulations of hydrogen dynamics
inside of MOFs using first principles density functional theory to describe the electronic
state of the system coupled to molecular dynamics of the nuclear degrees of freedom including
quantum nuclear effects (via the path integral formalism). The effect due to the quantum
fluctuations of the nuclear degrees of freedom are critical for understanding the binding
and dynamics of light elements such as hydrogen. The project will use this advanced and accurate theoretical
framework to address three questions of key importance to this field: (1) How do quantum
nuclear effects alter hydrogen dynamics inside of MOFs? (2) How do the transition metal atoms
incorporated into the MOF structure change the hydrogen binding and dynamics properties and
which metals are best for real-world applications? (3) How does the flexibility and temperature-dependent
fluctuations of the MOF framework affect hydrogen storage?

The scientific outcomes of this research will be of interest and importance to researchers
studying MOFs and hydrogen storage. The aim is to provide useful understanding and information
that may lead to the creation of materials that will help create a hydrogen economy. The
results of the work will be published in high quality journals, presented widely at international
conferences, and form the basis for outreach events to the broader public in order to elevate
general interest in science and technology as well as how simulations and computations can
address important real-world problems. Junior researchers carrying out the research work
will be trained in the use of advanced computational methods, attendant software infrastructures,
and materials design approaches that are all highly useful skills in the twenty-first century.